Strengthening Undergraduate STEM Research and Education at Clark Atlanta University

Clark Atlanta University, through its HBCU-UP project, will implement activities to enhance the preparation of its graduates for post baccalaureate study in STEM disciplines. The institution will establish a Post-Freshman Academic Consolidation and Enhancement Program (PACE), an intensive 8 week study, for majors from all STEM disciplines. The institution will also implement curriculum revisions and enhancements in mathemaitcs, computer and information science, physice, chemistry, biology and psychology. Paralleling this curriculum reform will be faculty training, especially in student assessment techniques. Clark Atlanta will also institute summer undergraduate research experiences, seminars, workshops, enhanced student advisement as well as academic year undergraduate research experiences, all aimed at the overarching goal of increasing the depth and breadth of the academic preparation of the undergraduate Science, Engineering amd Mathematics students with an aim of motivating them to pursue doctoral studies.